Belmont Forum Collaborative Research: Arctic Wetlands Ecosystems - Resilience through Restoration & Stewardship

This award provides support to U.S. researchers participating in a project competitively selected by a 55-country initiative on global change research through the Belmont Forum. The Belmont Forum is a consortium of research funding organizations focused on support for transdisciplinary approaches to global environmental change challenges and opportunities. It aims to accelerate delivery of the international research most urgently needed to remove critical barriers to sustainability by aligning and mobilizing international resources. Each partner country provides funding for their researchers within a consortium to alleviate the need for funds to cross international borders. This approach facilitates effective leveraging of national resources to support excellent research on topics of global relevance best tackled through a multinational approach, recognizing that global challenges need global solutions.

Working together in this Collaborative Research Action, the partner agencies have provided support for research projects that focus on Resilience in a Rapidly Changing Arctic. Integrated teams of scientists and stakeholders will address key areas of arctic resilience understanding and action. This collaboration of academic and non-academic knowledge systems constitutes a transdisciplinary approach that will advance not only understanding of the fundamentals of arctic resilience but also spur action, inform decision-making, and translate into solutions for resilience. This award provides support for the U.S. researchers to cooperate in consortia that consist of partners from at least three of the participating countries.

The AWERRS (Arctic Wetlands Ecosystems - Resilience through Restoration and Stewardship) project seeks to address the challenge of building resilience in a rapidly changing Arctic by focusing on human activities that impact Arctic wetlands ecosystems. The project will support and help communities to strengthen their capacity to engage in wetlands restoration and stewardship. At a local scale, wetlands buffer heavy precipitation and snowmelt and filter and store water. They provide crucial habitat for biodiversity, providing nesting and breeding areas for migratory bird species and spawning areas for fish species. As such, they support traditional livelihoods activities including reindeer husbandry, hunting and fishing, other cultural and recreational activities, and tourism. Less widely known is that intact wetlands store a stunning amount of global carbon. While they make up only about 3% of the Earth's land area, wetlands store an estimated 20% of the worlds terrestrial carbon – the largest regional store of carbon on the planet. Identifying and testing approaches for strengthening the engagement of local communities and other actors in the restoration and stewardship of Arctic wetlands ecosystems helps increase community resilience though shared engagement - and through the ecosystem service benefits derived from improving wetlands ecosystems' resilience